SSC: "JSU-Summer Science Camp"

For four weeks during the summers of 1996, 1997, and 1998, Jackson State University will conduct the JSU-Summer Science Camps for fifty rising seventh and eighth grade black students. The students will be exposed to life science, physical science, mathematics, computer science, and communication skills in an intensive four- week residential summer session. This exposure will take the form of classroom instruction and laboratory activities, e.g., demonstrations and experiments. These activities will involve individual as well as group interaction with communication skills (oral and written), applications of mathematical concepts, computer applications, and laboratory experimentation and demonstrations. Participants will identify either an individual or group science project with guidance from faculty mentors. Once the project has been identified the faculty will work with students in four major areas--research, laboratory work, problem-solving, and computer skills. Students will attend seminars and go on field trips. This will provide opportunities to interact with practicing scientist and observe activities at the planned site visits. During the school year, students will come to Jackson State University once a month on a Saturday to participate in scheduled activities and continue to develop their science fair project with assistance from their faculty mentor. ***